Mathematical Sciences: Computability and Mathematical Definability

9500878 Slaman Slaman intends to study computability and mathematical definability. This research will contribute to developing a complete understanding of the degree-theoretic structures associated with relative definability, such as the global structures of the Turing degrees D and the Turing degrees of the recursively enumerable sets R. Missing ingredients necessary to this understanding include determining whether the universal-existential theory of R is decidable, characterizing when a relation on R or D is definable within that structure, and calculating the automorphism groups of these structures. Secondly, Slaman plans contributions to the proof-theoretic understanding of second-order arithmetic. In that context, one considers formal axiom systems which postulate that the universe (of sets or of reals) is closed under definable operations. For example, one considers the collection of axioms that states that the reals are closed under relative computation of arithmetic definability. Slaman plans systematically to study the combinatorial set-theoretic properties of the continuum in this context. He is particularly interested in conservation questions: When do closure properties of the continuum have nontrivial consequences for first-order number theory? The algebraic structure of definability is well represented by the Turing degrees, a classification of sets of integers in which two sets that can be computed from each other are considered equivalent. Slaman will study the Turing degrees in several settings, to address fundamental questions about their critical features. The necessity of noneffective means, such as the existence of sets which are not computable, can also be demonstrated proof-theoretically; this motivates Slaman's program for the systematic investigation of the combinatorial set-theoretic properties of the continuum (i.e., of an infinite set of size equal to that of all real numbers). He is particularl y interested in questions which relate the set theory of the continuum to other important sets. When do certain properties of the continuum have bearing on elementary properties of the integers? ***